Conference on Local and Nanoscale Structure in Complex Systems; Santa Fe, NM; September 16-21, 2001

0118222
Egami

International Conference on LOCAL AND NANOSCALE STRUCTURE IN COMPLEX SYSTEMS will be held September 16-21, 2001 in Santa Fe, New Mexico, USA. The purpose of this meeting is to discuss how the nanoscale arrangements of atoms in solids and molecules determine the properties of complex systems, from experimental as well as theoretical perspective. Examples of complex systems include strongly correlated electron systems such as superconducting cuprates and magnetostrictive (CMR) manganites, heavy fermion metals, relaxor ferroelectrics, catalysts, polymers and other soft or molecular compounds, and proteins.
%%%
The subject of this conference is at the cutting edge of condensed matter and materials physics. Graduate students and postdoctoral fellows will be greatly stimulated and learn from attending this conference. We plan to spend 60 % of the grant on students and postdoctoral fellows who do not have other means of support. The rest will be spent for inviting young and promising researchers who will not be able to attend the conference without support.